Workshop on Early Child and Brain Development to be held June 12-15, 2002 in Bucharest, Romania

The Workshop on Early Child and Brain Development will be held in Bucharest, Romania June
12-15, 2002. The primary objective of the workshop is to open a dialogue between Romanian
researchers, academics and practitioners and their American counterparts. The state of
knowledge in Romania on early child development and brain development has suffered as a
result of long communist rule, and has advanced slowly in the decade since the fall of Nicolae
Ceausescu. As such, the workshop will also provide an introduction to the Romanian participants
to state-of-the-art knowledge in early child development and early brain development. The
Romanians and Americans participating in the workshop will be able to work together to
determine the specific information and resource needs of the various fields represented by
Romanian workshop participants. Finally, the workshop will enable the American participants to
make connections with possible collaborators and/or likely recipients for future
academic/research support.